An Innovative Approach to Probing Polar Coronal Holes: Simultaneous Observations with Fe IX 3801, Fe X 6374, Fe XI 7892, and Fe IV 5303 during Total Solar Eclipses

This proposal will study the morphology and temperature structure of the source regions of solar wind, which are vital for understanding mechanisms that drive this plasma flow. The PI will make images of the Sun in spectral lines during the unique coronal observing conditions provided by total solar eclipse. Four CCD cameras will simultaneously observe the solar corona; in addition, the PI will observe white light from the continuum measurements in all four filters. With this set of spectral lines, the PI will identify the spatial relationship between the cool material forming the bulk of coronal holes, and the hot material from the surrounding regions that often veil them. These observations should also resolve spatial distribution of different temperature plasmas within polar coronal holes. With the CCD cameras, the PI will provide the first simultaneous photometric images of coronal holes in these spectral lines. This research will ultimately establish a new tool for exploring the structure of coronal holes.